Rural Minority Teacher Research Program

93-53657 Durig Rural Minority Teacher Research Program The South Carolina EPSCoR Program proposes to implement a Minority Teacher Research Program through the NSF/EPSCoR Experimental Systematic Initiative Program. Sixteen high school teachers selected from rural, minority schools will be selected to participate in EPSCoR-related research projects for six weeks during the summer at the University of South Carolina and Clemson University. Activities include team or individual research projects, weekly seminars, development of instructional materials and experiments to take back to the classroom, and oral presentation of their research results at a mini-symposium. The research projects offered through the Rural Minority Teacher Research Program will be directly related to the research projects of the ninety-seven NSF/EPSCoR Research Cluster faculty. Systemic and potential long term impacts include the transfer of new knowledge to the classroom; the potential for recertification or graduate degree credit; access to curriculum materials and other resources and information provided by the universities; and the interface to the funded South Carolina AMP Program and the (pending) South Carolina Statewide Systemic Initiative. A plan for monitoring and assessing the Program is described. Dissemination will occur via a mini-symposium, AP press releases, and the South Carolina EPSCoR Newsletter distributed to South Carolina's twelve public colleges and universities, twenty-one private and professional colleges, sixteen technical colleges, school district offices, selected elementary and secondary schools, and the South Carolina Department of Education.